CADRE: A National Facility for High-Performance I/O Characterization and Optimization

9975248
Reed, Daniel A.
U. Illinois at Urbana-Champaign

CADRE: A National Facility for High-Performance I/O Characterization and Optimization

This award provides support for the establishment of a national facility for I/O characterization and optimization tools. The resulting portable toolkit will be able to characterize I/O access patterns on PC workstation clusters, scalable parallel systems, and computational grids. The toolkit is based on Pablo, a portable performance environment that supports performance data capture and analysis. The National facility will provide system tools and experimental data needed for research in I/O system design, analysis, and optimization for scalable parallel and distributed systems. Web-based tutorials, demonstrations and exercises will be developed which, together with other outreach activities, will make these tools available and useful to smaller institutions.